Determinants, analytic torsion, and functional analytic models for Dirac operators

DMS-0072551
Matthias Lesch

Dirac type operators are symmetric first order elliptic
differential operators arising naturally in Riemannian geometry.
They are of considerable interest in theoretical physics. Given
such an operator on a compact manifold with boundary it is
possible to characterize those boundary conditions which lead
to a self--adjoint elliptic problem. These so--called well--posed boundary value problems were introduced by R. T. Seeley. A recent account from a functional analytic perspective was given by the researcher in collaboration with J. Br\"uning. This is the
starting point of the current project in which the researcher
wants to investigate spectral invariants associated to Dirac
operators on manifolds with boundary. More specifically,
we want to present an analytic proof of the gluing formula
for the analytic torsion in the presence of an arbitrary
flat bundle. As a consequence one obtains an alternative
approach to Cheeger--Muller type theorems on the relation
between analytical and topological torsion in the most
general setting, including manifolds with boundary. An
invariant related to the analytic torsion is the zeta-regularized determinant. We want to study this determinant as a function
of the boundary condition, generalizing earlier work of Burghelea-Friedlander--Kappeler and Scott-Wojciechowski.
The third subproject, jointly with J. Bruening, deals with a functional analytic approach to boundary value problems for
Dirac type operators. The ultimate goal is to find a simple
functional analytic model for a Dirac type operator on a
manifold with boundary which allows to derive basic results
like heat trace expansions, index theorems and the spectral
flow theorem. Such a model would hopefully lead to such
theorems for manifolds with corners.

Dirac type operators are symmetric first order elliptic
differential operators arising naturally in Riemannian geometry.
They are of considerable interest in theoretical physics.
There are interesting relations between the spectrum of
the operator (the 'measurable' quantities of the physical
system) and the underlying geometry. In general the spectrum
of the operator is hard to compute. However, it is possible
to extract certain spectral invariants which are intimately
related to the geometry. If the underlying geometry is a
manifold with boundary then, at first, one has to impose
boundary conditions in order to get a self--adjoint problem
and hence a well--defined spectrum. In the current project
the author wants to investigate certain spectral invariants
(analytic torsion, determinant) for such boundary value
problems. A special issue is the dependence of the invariants
on the choice of the boundary condition.